Proposal for Convening a Planning Committee to Institute a Workshop on Solid State Chemistry and Materials

DMR-9707320 A modest level of support is being provided to cover the costs associated with convening a Planning Committee to institute the NSF Workshop on Solid State Chemistry and Materials to be held late in 1997. Support from NSF will be used to cover travel expenses for the members of the planning committee, and to provide for meeting space at O'Hare Airport in Chicago on Saturday, January 25, 1996. %%% An ad hoc group participating in the 1996 Gordon Research Conference on Solid State Chemistry met in July to discuss organizing a Workshop in Solid State Chemistry and Materials (SSCM). A planning committee was formed which then met at the Materials Research Society Symposium on Solid State Chemistry of Inorganic Materials in Boston in December, 1996 at which time the Proposal for Convening a Planning Committee to Institute a Workshop on Solid State Chemistry and Materials was discussed and finalized. The Planning Committee meeting will be held on Saturday, January 25 at Chicago's O'Hare Airport. A follow-up session is then planned which will involve the Planning Committee members who will attend the European Gordon Conference on Solid State Chemistry in Oxford in the Fall of 1997 with the objective of finalizing participation in the NSF SSCM Workshop by the international community working in areas of solid state chemistry and materials. ***